SGER: Exploratory Research on MEMS/NEMS Based Flexible Hearing Aid Components

0627777
Bakkaloglu

This project is to conduct exploratory, high-risk research, toward the development of MEMS based audio sensor arrays (microphones), loudspeakers and power adaptive analog front-ends to decrease the size and power consumption of these three major components, which are predominantly responsible for the size and power consumption of Completely in the Canal (CIC) hearing aids.